CAREER: Dynamic Sonar Perception and Navigation

9733040 Leonard The objective of this career development plan is to foster the interest of the next generation of students in the special challenges and rewards of ocean engineering, while advancing the state of knowledge in the critical areas of sonar perception and navigation. The realization of the full potential of future ocean technologies will require new engineers with the motivation to approach difficult marine problems and an understanding of the complexities of ocean system design. Autonomous navigation using sensor measurements of environmental features provides a compelling goal to focus research in sonar perception and navigation. Building a map of an unknown environment while using that map to navigate is a difficult problem at the frontier of robotics research. Current data fusion methods are not robust or computationally tractable for this problem. To realize this capability for marine robotic systems using sonar, three objectives will be pursued: (1) feature extraction methods which exploit knowledge of the underlying physics of sonar, (2) uncertainty management techniques that incorporate noise, data association ambiguity, and navigation error, and (3) adaptive echolocation strategies that permit efficient detection and characterization of objects. To investigate these topics, graduate and undergraduate students will participate in algorithm development, data acquisition and processing, and experimentation in controlled environments. Innovative experiments that biomimic dolphin echolocation will be performed in a testing tank at MIT. Collaborations have been established to provide maximum research impact. The educational plan involves teaching and mentoring in subject areas that are closely related to the research. The undergraduate teaching responsibilities of the principal investigator include a sophomore-level introductory course in ocean science and technology, a two semester capstone design sequence, and a freshman advising seminar based on the sonar systems of bats, dolphins, and robots. Innovations in pedagogy will promote active learning, teamwork, and communication skills. Case studies will guide discussion of contemporary topics in oceanography, acoustics, and design. Novel laboratory exercises will demonstrate principles from acoustics and marine robotics. New Matlab-based tools will enable students to manipulate ocean data. ***